POWRE: A New Algorithm for Minimizing Common Entropy Measures for Signal Enhancement, Estimation, and Source Localization

EIA-9806107
Gorodnitsky, Irina F.
University of California-San Diego

POWRE-CISE: A New Algorithm for Minimizing Common Entropy Measures for Signal Enhancement, Estimation, and Source Localization

This research aims at establishing a research program for the PI who has re-entered academic career after an interruption. The research involves a new algorithm for signal processing which is computationally efficient in a class of problems involving signal refinement, enhancement and recursive updating. The algorithm employs a novel iteractive architecture and the project objectives include developing solid mathematical foundations and five special implementations of the algorithm.